Acquisition of Instrumentation to Fabricate Low-Dimensional Artificial Materials

This project will provide new instrumentation for the growth, processing and characterization of lowdimensional artificial structures for teaching and research on the campus of University of California-Berkeley. The new equipment will be linked to an existing molecular beam epitaxy chamber, and represents new infrastructure in the field of nanostructured materials, which is important for microfabrication. The equipment will be housed in the Microfabrication laboratory, and includes one ultra-high vaccum (UHV) chamber for deposition of metals, one UHV chamber for focused ion beam writing and low energy electron irradiation, one UHV chamber for photo-luminesence and scanning tunneling microscopy (STM). These three chambers will be linked (UHV) to an existing molecular beam epitaxy (MBE) system. This facility will provde capability for conventional fabrication of quantumconfined nanostructures, novel processing methods such as STM lithography, engineered sitespecific phase nucleation, and in-situ surface modification, which will be available to campus faculty, students, and interested industries. Three departments and two Colleges of the university will undertake research in nanoscale physics, nanostructured optoelectronic devices, processing of nanoscale materials, and diagnostics of nanostructural degradation mechanisms.